Support of Travel by Junior Scientists to the International Conference on Theoretical Physics, Paris, 22-27 July, 2002

PHY-0225968
Lebowitz
The Internation Conference on Theoretical Physics (TH-2002) is being organized for July 22-27, 2002 in Paris, France. This award will help support the travel of young scientists, particularly graduate students and postdocs,to this conference. A portion of the award will also support visits by young scientists to theoretical centers within Europe for the purpose of establishing new collaboration with scientists they might not otherwise encounter.